U.S.-France Cooperative Research: Study of the Dynamic Characteristics of Plasma Spray Torches

9415715 Heberlein This three-year award will support U.S.-France cooperative research in plasma-aided manufacturing between research groups at the University of Minnesota and the University of Limoges. The U.S. investigators are Joachim Heberlein and Emil Pfender and the French investigator is Pierre Fauchais. The objective of their research is to perform diagnostic experiments designed to improve the reliability and controllability of the plasma spray process. The proposed research addresses the major cause of the lack of reproducibility, namely the uncontrolled dynamic behavior of the arc in the plasma torch. An improved plasma torch could have important applications in large-scale manufacturing and a variety of industrial processes, among them cutting, welding, plasma spraying, extractive metallurgy, melting- refining, and chemical synthesis. The U.S. and French laboratories have developed specific diagnostic techniques for studying the plasma process. The proposal takes advantage complementary expertise and ongoing experimental efforts. Different diagnostic techniques will be used on plasma torches of different geometries. Subsequent experiments on torches of similar design will then be conducted. The project will advance understanding of the dynamic behavior of the plasma arc and will result in improved design guidelines for plasma spray equipment. ***